State, Time and Velocity Resolved Photofragment Translation Spectroscopy of Organic Iodides

Professor El-Sayed is supported by the Experimental Physical Chemistry Program in a continued investigation of gas phase photodissociation processes. The current work emphasizes time-resolved kinetic energy release following one-photon absorption in rapid, nonstatistical photodissociation of prototype systems involving the carbon-iodine bond. Initial experiments involve a one-dimensional projection technique, time-delayed pulsed-extraction mass spectrometry, to determine kinetic energy profiles in rapid one-photon photodissociation. Additional work will include the use of femtosecond pump-probe laser techniques to measure the correlation between the fragment appearance times and their resulting kinetic energies.